Fault Process Zones

9405326 Scholz The mechanism of fault propagation through rocks is of fundamental importance in understanding brittle deformation. Recently, a mechanical model for the zone of intensified deformation near crack tips, the process zone, has been developed. This work will be an extensive field test of process zones intended to characterize the nature and geometry of process zone in 3-D and to determine their scaling relationship with fault scaling parameters. This study will involve describing both macro-and microstructures associated with process zones, with a concentration on the microstructures such as microcracks and pressure solution surfaces. The results will be tested against the present model and the model further developed.